Minimizing Surprise in Design

Three or four well-documented engineering designs that have failed under surprising circumstances will be studied. In particular, the research will focus on identifying what (if any) characteristics or tip-offs were available during the design process. In addition, a few well-documented engineering designs that have not failed under surprising circumstances will be studied. The surprising successes will be compared with the surprising failures to determine what special features may have been designed into the surprising successes. From these studies, generalized design principles will be created that will result in more rational integration of constraints and an improved basis for selecting among options.